Upgrade of Departmental X-Ray Facility

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF) and Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at the University of Delaware upgrade the existing departmental X-ray facility. This equipment will enhance research in a number of areas including (1) support of extramural collaborators from academic laboratories for varied research projects (2) internal research specializations emphasizing synthesis, and (3) crystallographic characterizations. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules